Presidential Young Investigator Award

They are establishing a program at Cornell to study novel transport phenomena in solids, with emphasis on charge-density- wave transport. Charge-density waves (CDWs) provide a new and fundamentally different electrical conduction mechanism. Their primary objectives for the next five years are (1) to establish the quantitative experimental phenomenology of CDW transport; (2) to develop a more detailed theoretical understanding of CDWs; and (3) to explore CDW applications. To meet these objectives, they are adopting a materials-oriented approach. Chemical, structural, and electrical characterization methods will be used to identify defect types and concentrations. An intensive materials preparation effort is being mounted to determine crystal growth conditions which minimize defect densities and to identify new CDW compounds with novel and/or more desirable properties. Transport measurements on high-quality, well- characterized materials will be used to study CDW dynamics, to quantify the CDW-defect interaction, and to evaluate possible CDW applications. In collabration with theorists at Cornell and elsewhere, these emperiments will be analyzed in an attempt to understand the fundamental processes underlying CDW transport.